MESA Success Through Collaboration Summer Science Camp

MESA's Success Through Collaboration program expands to offer a science and mathematics summer camp for 40 American Indian middle school students from throughout California per year. Held on the California Polytechnic University campus in San Luis Obispo and centering on an environmental theme, the camp is designed to: develop a community of academically oriented rural and urban Indian students; excite students about science, mathematics and engineering and the career possibilities in those fields; bolster self- esteem; demonstrate the leadership training; increase critical thinking and communications skills; and deepen students' commitment to remain in school and obtain a college degree in science, mathematics or engineering. The instructional approach includes cultural activities imbedded in an interdisciplinary environmental curriculum of hands-on mathematics and science and is facilitated by undergraduate role models and small group cooperative learning. Students will complete environmental projects and present them through a conference-like forum to parents and peers. Professors and practicing engineers and scientists provide career counseling. Academic year follow-up includes activities in MESA Academies, field trips, and guest speakers and MESA Clubs. Camp graduates subsequently become members AISES and interact with AISES university student mentors.